Engineering for Teachers

PROPOSAL NO.: 0230737
PRINCIPAL INVESTIGATOR: Fabris, Neda
INSTITUTION NAME: California State L A University Auxiliary Services Inc.
TITLE: Engineering for Teachers
NSF RECEIVED DATE: 06/04/2002
-
ABSTRACT

Faculty from the College of Engineering, Computer Science and Technology and the Charter College of
Education at California State University, Los Angeles (Cal State L.A.) are joining efforts in the
ihEngineering For Teachers (ETP)lr program with the goal of educating teachers to include engineering
concepts in the science education in K-12 classes and encourage more high school graduates to study
engineering.

As a, Hispanic-Serving Institution, Cal State L.A. has inherently more opportunities to attract students from underrepresented groups into the engineering profession than the majority of other fellow universities. According to the 2000 census, there are more underrepresented minorities in California than other groups, which means the Charter College of Education at Cal State L.A. not only trains more students from underrepresented groups to become teachers, but their graduates are preparing more students from underrepresented groups to attend college. The Charter College of Education at Cal State L.A. graduates approximately 300 pre-service teachers a year with a full credential. Due to the shortage of teachers in California, currently 1,716 students are enrolled in Cal State L.A. who teach via an emergency credential in local elementary, middle and high schools. Revising the science content of their study to include engineering will hopefully encourage them to do the same in their classes multiplying the effect of this grant greatly.
-
In order to achieve these goals the following activates will be designed and conducted:

1. Provide education faculty with the theory and practice needed to incorporate engineering design
and process methodology in their curriculum.

2. Provide engineering faculty with knowledge of learning theories to improve their teaching
pedagogy.

3. Redesign science-method courses for pre-service teachers to include engineering concepts and to
connect science and math with the real world. Also, provide K-12 teachers with information on
requirements needed for their students to become engineers.